AGS-PRF: Modulation of Bubble-Mediated Fluxes in Breaking Waves by Wind Forcing and Subsurface Turbulence

Air-sea gas exchange plays an important role in the Earth system, including supporting the health of ocean ecosystems. One key pathway for gas exchange is through bubbles created by breaking waves. This project will use a laboratory-based wind-wave tank to study air entrainment under the effects of breaking wave conditions and subsurface ocean turbulence. The result of the project will be improved numerical modeling that supports weather prediction and coastal risk assessment. This effort will also support workforce development through the mentorship of an early career scientist and students.

Quantifying bubble-mediated gas transfer remains challenging due to a strong nonlinear relationship with wind speed, solubility dependence, and asymmetric flux transfer. This project is centered on experiments that will be conducted in a wind-wave tunnel where different wind, wave, and turbulence characteristics can be varied and high-speed imaging can be used to image the entrained bubbles. The experiments are designed to address questions about how wind speed and direction modulate the breaking-wave-induced entrained bubble plume and how the entrained bubble plume is modulated by varied subsurface turbulence. A machine learning framework trained on the experimental datasets will be used to predict sea-state-dependent bubble-mediated gas transfer velocity.